New Approaches to General Equilibrium Analysis

The work described in this proposal is based on two new principles associated with general equilibria. These principles lead in turn to a new proof of the fundamental existence theorem for general equilibria and new approaches to the construction of algorithms for computing equilibria. The new proof of the fundamental existence theorem provides interesting new insights into the nature of equilibria, and suggests extensions to economies with externalities and nonconvexities. This project also leads to new algorithms for actually computing economic equilibria. These new algorithms appear to promise an increase in computational efficiency and robustness over existing methods. This increase in efficiency is based in part on the fact that the new algorithms require a fixed-point solution in a space having dimension equal to the number of individuals rather than the number of commodities. Typically this means a great reduction in dimension and hence a similar reduction in computation time. This project investigates the properties of these new algorithms as well as continuing the theoretical research.